An Integrated Science Workbench/Data Bank for Ecosystems Research

This award will support the Andrews ecosystems research group in the acquisition of an integrated information processing system that combines 1) on-line storage of the Forest Science Data Bank (FSDB), 2) a SUN 3/280 graphics workstation, and 3) a local area network (Ethernet LAN) linking the SUN workstation and FSDB with existing personal computers of the Andrews ecosystem research group. An on-line data bank is essential for the future success of the integrated forest research program. An on-line data bank will promote more efficient use of existing data and facilitate prompt documentation and storage of data currently being gathered. The LAN will allow high-speed access to the data bank by Andrews researchers in three University departments (Forest Science, Fisheries and Wildlife, and Entomology) and the US Forest Service. The LAN also allows harddisks, laser printers, and plotters to be shared among users, greatly multiplying computing power. The LAN provides electronic file and message transfer among researchers, and also among sites via the OSU campus network as well as existing national and international networks. The workstation, with its high- resolution graphics, will be used to study pattern and process at the landscape and other levels of spatial resolution. A geographic information system (GIS) will be the main tool for these studies. The workstation will also allow scientists to work efficiently with more complex models than are available now, and to use a new breed of exploratory statistical techniques. The ecosystems research group comprises scientists with a noteworthy record of research. Further enhancement of their collective productivity will be expected with the new computer system. Institutional facilities are excellent and cost sharing is significant. The Ecosystem Studies Program recommends enthusiastically that this award be made.